Two-Dimensional Imaging of Network Activity in the Brain

9419247 Buzsaki The behavior of organisms is controlled by electrical signaling in large populations of brain cells. One of the great technical challenges for brain scientists is to describe the electrical activity of neuronal populations in a way that is related to behavior. With this award, a team comprised of a neuroscientist, a mathematician and an engineer, and headed by Dr. Gyorgy Buzsaki, will construct a system for monitoring the signals produced by large numbers of brain cells recorded from animals while they are engaged in bouts of behavior. The team will test their methods by recording, analyzing and displaying the signals of cells within the hippocampus, a structure believed to be essential for certain types of learning. This work should have broad impact on the methods used in future research by both experimental and theoretical neuroscientists in the attempt to understand the neural control of behavior.